Catalase Expression to Study Information Flow To and From the Circadian Clock

Most organisms exhibit temporal organization with respect to the
environmental oscillation of day and night and, thus, express diurnal
rhythms. Many of these rhythms persist in constant conditions, indicating
that organisms have the capacity to measure time and to use this time
information to temporally regulate their biology. Circadian rhythms are a
subset of endogenous rhythms with periods of approximately 24 hr that
persist in the absence of environmental time cues. Increased understanding
of plant responses to environmental input and to endogenous temporal cues
will have broad agricultural importance for several reasons. Both
environmental cues and the circadian clock contribute to the photoperiodic
decision to flower, with obvious implications for crop production.
Additionally, it has become increasingly clear that the circadian clock
gates the responses of plants to a variety of biotic and abiotic stresses;
that is, the response to stresses varies as a function of circadian phase
(time of day).

Circadian phase is an integral aspect of circadian rhythmicity, yet little
is known of the molecular mechanisms by which phase information is
imparted. The Arabidopsis CAT2 and CAT3 catalase genes provide molecular
hands of the circadian clock with which to investigate the molecular basis
by which the clock gates gene expression to specific circadian phases. The
circadian clock gates mRNA abundance of CAT2and CAT3 to distinct circadian
phases, and each is distinct from the phase of maximal CAB mRNA abundance.
At least some of the components of the output pathway from the circadian
clock to each of these three genes must, by definition, be distinct. A
second goal is to investigate the interaction between the circadian clock
and light. Illumination with continuous blue (but not with red) light
allows the detection of circadian oscillations in CAT2 and CAT3 mRNA
abundance. In addition, there is a role for blue light signaling in the
damping of CAT3 mRNA oscillations in extended dark. Ecotype RLD fails to
damp and apparently carries a mutation that defines a new component of this
damping pathway.

The specific experimental objectives are:

1. The characterization of the cis-acting elements required for CAT
expression. A comparison of these morning-specific (CAT2) and
evening-specific (CAT3) genes will allow insight into the mechanisms of
phase determination. This will entail the construction of series of
transgenic lines carrying CAT-LUC fusionsin order to define circadian
response elements and light response elements controlling CAT expression.

2. The characterization of the blue light photoperception system required
for initiation of circadian oscillation in CAT2 and CAT3 mRNA abundance.
This will entail the analysis of known mutants with defects in blue light
perception and signaling as well as the identification of novel mutants
defective in the initiation of circadian oscillations in CAT3-LUC expression.

3. The investigation of the mechanism of damping of the circadian
oscillations of CAT3 mRNA abundance seen in extended dark. If the defect
in damping seen in ecotype RLD is inherited in a genetically tractable
fashion, the mutated gene will be cloned and characterized. New loci
required for damping the oscillation in CAT3 mRNA abundance in extended
dark will also be identified.